Workshop on RF Micromachining and MEMS Technology for Wireless Communications Systems

9911096
Jensen

This award is proposed a workshop on RF Micromachining and MEMS in Wireless Communications Technology. It will bring together approximately 30 researchers involved in this area of research, discuss the state-of-the-art of this technology, and identify the R&D needs that will help enable this technology and facilitate its full utilization in the development of the next-generation wireless systems.
***